Engineering Research Equipment Grant: For Argon Laser

Funds are provided for the purchase of a four watt argon laser. The laser will initially be used for Moire' strain analysis. It will also be used for combined experimental-numerical stress analysis and studies of the metal casting process.